A Deformation Based Methodology for the Evaluation and Upgrading of Existing Structures

9319434 Krawinkler This project is concerned with the development of basic concepts and fundamental information needed to formalize a deformation based methodology for the evaluation and strengthening of existing structures. This methodology is intended to (1) permit an assessment of the expected seismic performance of existing structures and the identification of basic strengthening needs, (2) facilitate the development of an effective strengthening scheme and provide target values for the required strength and deformation capacities of the components of the strengthening scheme, (3) permit a verification of the seismic performance of the strengthened structure and provide information for fine-tuning of the elements of the strengthening scheme, and (4) provide information on the deformation demands that will govern requirements for detailing of the elements of the strengthening scheme. There have been knowledge gaps in deformation base evaluation/strengthening which reflects the physical phenomena that control seismic performance and this research is intended to fill most of these gaps. Research is conducted on the following three topics: (1) Quantification of seismic strength and displacement demands for Single- Degree-of-Freedom and Multiple-Degree-Of-Freedom systems, (2) development of procedures and criteria for the execution and evaluation of a "push-over" analysis that is to be employed as part of the evaluation/verification process, and (3) formalization of the concepts of the deformation method to the extent that it can become a feasible and attractive tool for the engineering profession. A successful completion of this research will make it possible to implement an approach to repairing and strengthening of seismically vulnerable structures. It represents a unique opportunity to advance the state of the practice and introduce deformation control as an accepted part of the design process. This is an award under NSF-Initiative "Repair and Rehabilitation Research for Seismic Resistance of Structures." ***